Production and Reaction Kinetics of Cell-Lytic Enzyme Systems

The research involves fundamental studies of the kinetics of enzymes which break down cell walls (cell-lytic enzymes). For many microorganisms desirable materials are produced within the cell, and before the material can be separated and purified the cell wall must be ruptured to release the desired contents of the cell. The development of superior techniques for breaking the cell wall may be particularly important for the production of food grade protein and intracellular enzymes; degradation of cell wall polysaccharides; production of cell hydrolysates; use as anticaries agents; treatment of fungal diseases; and, lately, in the release and isolation of intracellular products obtained by recombinant DNA techniques. The research studies the kinetic behavior of the enzyme reactions which leads toward the engineering principles necessary for the design of an enzymatic cell-disruption reactor.